Connection to NEARnet and NSFNET

This award enables Colby College to connect to NSFNET through a 56,000 bit per second link to the mid-level network NEARnet, the New England Academic and Research Network. Access to NSFNET provides the faculty and students with access to supercomputers, data archives, a variety of network gateways, automated library catalogs, and a wide range of software. The connection is particularly important to Colby, which is located in a relatively remote section of the country. It is of value to the natural science students and faculty, not only giving access to supercomputers, but also in facilitating joint research with distant collaborators, and providing them with immediate access to data necessary to their work. The benefits accrue to the social science faculty and students, including those in the humanities, especially in projects involving quantitative applications. Further, as the competititon for the best faculty grows stiffer each year, the connection to NEARnet and NSFNET will be a powerful factor in Colby's success in recruiting outstanding faculty, particularly in the sciences.